Continued Core Support of the Water Science and Technology Board

This is an award to provide renewed support for the operation of the National Academy of Sciences, National Academy of Engineering, National Research Council's Water Science Technology Board. This Board provides a focal point for studies related to environmental engineering aspects of water management. The Board's objective is to improve the scientific and technological basis for resolving important questions and issues relating to water and wastewater aspects of environmental engineering practice. An important function of the Board is to conduct studies and to sponsor workshops and conferences that can be utilized for program planning purposes. The Board also functions as an appropriate means for coordination of research plans with other Federal agencies including FEMA, USGS, EPA, DOE, and the U.S. Army Corps of Engineers.